A Small Integrated Geophysical Instrument for the Field Measurement of the Magnetic and Electrical Properties of Rock Samples

Geophysical prospecting for mineral deposits depends on the physical property contrast between various rock units and mineral deposits. A Broader understanding of the physical structure of the earth can be realized from rock physical data. A small pocket sized instrument to measure the magnetic and electrical properties of rack samples under field conditions would be an immense aid to explorationists. This need can now be fulfilled utilizing modern microelectronic technology. The research objective is to develop a small integrated meter for field use by explorationists. Years of experience in physical property studies and instrumentation by our firm can make this realizable, resulting in the development of such a meter and demonstrate its scientific usefulness in geophysical exploration. The critical design must provide conversion of the outputs of magnetic and electric sensors for processing into meaningful geophysical data. Innovative design will consist of a multiplicity of sensors independently attached to a master microprocessor controlled system that are interchangeable in the field of for separately measuring the magnetic and electrical properties of rock samples. Research will determine the best consistent with operational demands. The effort proposed will be directed toward solving these objectives.